Acquisition of a 300 MHz NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Chemistry Department of the University of California, Irvine to acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include: 1) Transition metal organometallic chemistry 2) Structural chemistry of oligosaccharides 3) Total synthesis of steroids, alkaloids, neurotoxins, antibiotics, and marine natural products 4) Fundamental studies of ion-solvent interactions 5) Organolanthanide and organoyttrium chemistry 6) Chemistry of oligomellasilsequioxanes